Enhanced Teaching and Student Research Capabilities using ICP-AES

This project provides Inductively Coupled Plasma-Atomic Emission Spectroscopy (ICP-AES) to students and faculty with the goal of expanding elemental analysis capabilities. The ICP-AES will also be available as a resource for local educational institutions. Students use ICP in Analytical Chemistry during their sophomore year. Analysis of more complex mixtures, soil samples, biological tissue analysis, and environmental samples is emphasized in subsequent course work; Advanced Inorganic, Biochemistry, Environmental Studies, Instrumental Analysis, Polymer Chemistry, and student/faculty research projects. The integration of information obtained from high-performance liquid chromatography, gas chromatography, mass spectroscopy, infrared spectroscopy, ultraviolet and visible spectroscopy, and nuclear magnetic resonance spectroscopy is used for the identification and quantification of chemical species present in complex mixtures. Particular emphasis is placed on samples of environmental importance.